CEDAR: Thermospheric Coupling with the Lower Atmosphere Using Lidar and CEDAR Instrument Cluster at Millstone Hill

This project completes development of a Rayleigh-Doppler lidar system at the Millstone Hill Observatory, and operates in part of an existing instrument cluster. The instrument cluster includes the lidar system, an incoherent scatter radar, a Fabry-Perot interferometer, a meteor wind radar, and an optical tomographic imaging instrument. The data improves understanding of sources of tidal variability in the altitude of transition between the mesosphere and lower thermosphere. The lidar instrument uses the MIT Lincoln Laboratory Firepond 1.2 meter diameter, fully-steerable telescope, as the telescope's steerability allows full vector wind measurements up to 86 km at night, with a potential for daytime observations to lower altitudes. The instrument cluster measures density, temperature, and winds with high resolution over roughly the entire altitude range from about 30 to 130 km, thus greatly extending current observations into the source region and into the important tidal propagation path, where the tidal amplitudes are modulated. Simultaneous Doppler wind and temperature data collected for both day and night clarifies the role that gravity wave (GW) dissipation has in contributing to the variability of tidal structure. These measurements are also examined for the expected correlation between the developing mesosphere temperature inversion layer and the forcing of the lower mesosphere zonal wind jet that may both be caused by gravity wave dissipation processes.